Low-Dimensional and Symbolic Dynamics

Proposal Number: 0139916
PI: Michal Misiurewicz

ABSTRACT

The Principal Investigator will perform research in the theory of
dynamical systems, mainly low-dimensional (both smooth and continuous)
and symbolic. He will apply analytical, topological and combinatorial
tools in order to investigate real and complex systems. A substantial
part of the project is aimed at providing bridges between real and
complex, one- and two-dimensional dynamics. A new class of
two-dimensional systems will be considered. Quadratic laminations will
be looked upon from the point of view of combinatorial dynamics and
rotation theory. For other systems attractors, periodic orbits,
rotation sets and topological entropy will be in the center of
attention. Moreover, symbolic systems with an additional local order
structure will be studied.

For almost every phenomenon from Physics, Chemistry, Biology,
Medicine, Economy and other sciences one can make a mathematical model
that can be regarded as a dynamical system. Sometimes the study of
this system is extremely difficult, but quite often it can be reduced
to the study of a much simpler, low dimensional or symbolic one. This
project is devoted mainly to the investigation of the properties of
these types of systems from the mathematical point of view. The
results that can be obtained are usually much stronger than in the
general case and often lead to much deeper understanding of the
original systems.